CAREER: Designing Learning Environments to Foster Productive and Powerful Discussions among Linguistically Diverse Students in Secondary Mathematics

The project will design and investigate learning environments in secondary mathematics classrooms focused on meeting the needs of English language learners. An ongoing challenge for mathematics teachers is promoting deep mathematics learning among linguistically diverse groups of students while taking into consideration how students' language background influences their classroom experiences and the mathematical understandings they develop. In response to this challenge, this project will design and develop specialized instructional materials and guidelines for teaching fundamental topics in secondary algebra in linguistically diverse classrooms. The materials will incorporate insights from current research on student learning in mathematics as well as insights from research on the role of language in students' mathematical thinking and learning. A significant contribution of the work will be connecting research on mathematics learning generally with research on the mathematics learning of English language learners. In addition to advancing theoretical understandings, the research will also contribute practical resources and guidance for mathematics teachers who teach English language learners. The Faculty Early Career Development (CAREER) program is a National Science Foundation (NSF)-wide activity that offers awards in support of junior faculty who exemplify the role of teacher-scholars through outstanding research, excellent education, and the integration of education and research within the context of the mission of their organizations.

The project is focused on the design of specialized hypothetical learning trajectories that incorporate considerations for linguistically diverse students. One goal for the specialized trajectories is to foster productive and powerful mathematics discussions about linear and exponential rates in linguistically diverse classrooms. The specialized learning trajectories will include both mathematical and language development learning goals. While this project focuses on concepts related to reasoning with linear and exponential functions, the resulting framework should inform the design of specialized hypothetical learning trajectories in other topic areas. Additionally, the project will add to the field’s understanding of how linguistically diverse students develop mathematical understandings of a key conceptual domain. The project uses a design-based research framework gathering classroom-based data, assessment data, and interviews with teachers and students to design and refine the learning trajectories. Consistent with a design-based approach, the project results will include development of theory about linguistically diverse students' mathematics learning and development of guidance and resources for secondary mathematics teachers. This research involves sustained collaboration with secondary mathematics teachers and the impacts will include developing capacity of teachers locally, and propagating the results of this work in professional development activities.